Elementary Particle Theory and Quantum Field Theory

9421387 Greenberg The Haag expansion (N quantum approximation) will be used to study quantum chromodynamics (QCD), with emphasis on the relation of the constituent quark model to the parton model; i.e., the relation of constituent and current quarks. The goal is to bring quantum field theory methods starting from the QCD Lagrangian to bear on empirical data ranging from hadron spectroscopy to deep inelastic scattering processes. Specfic issues to be investigated include chiral symmetry breaking, confinement, and the description of relativistic bound states. Theoretical investigations will also include studies of (i) radiative and electroweak0induced fine structure effects on the fermion masses in the composite model, (ii) dynamical breaking of supersymmetry, chiral and vectorial symmetries, (iii) Yukawa unification (which is forced in the preon model) and understanding large tan B (iv) expected masses of the SUSY-spectrum in the preon model, (v) the question of the unity of all forces at the preon level, (vi) cosmological issues related to inflation, baryogenesis and dark matter and (vii) a possible origin of the preonic spectrum and gauge group from superstring theories. ***